Princeton-CEFRC Summer School on Combustion, June 23-28, 2013, Princeton University Campus

Abstract

#1321222
Law

The Princeton-CEFRC Summer School on Combustion is part of the outreach program of the Combustion Energy Frontier Research Center (CEFRC), established by DOE in 2009. The week-long school, scheduled for June 23-28, 2013 on Princeton University Campus, offers courses on Combustion Theory, Combustion Chemistry, Quantitative Diagnostics for Combustion Chemistry and Propulsion, and Computational Turbulent Combustion. After-class sessions are also scheduled to enhance the experience of the students. The proposed funding is to provide partial support to students who will be participating in the Summer School.